Collaborative Research: MFAI:Random geometry of the empirical risk landscape in deep learning: Optimization and Generalization

Modern deep learning models often have far more parameters than training examples, and they can fit training data perfectly even when the data contain noise. Classical theory would suggest that such models should perform poorly on new data, yet in practice they often generalize well. They are also successfully trained using simple methods such as gradient descent, even though the underlying optimization problems are highly non-convex. The project will address these gaps by identifying mathematical principles that explain when neural networks generalize well and when training algorithms find good solutions. The results are expected to support the long-term development of more reliable, efficient, and interpretable artificial intelligence (AI) systems.

More specifically, the project will study the random geometry of empirical risk landscapes for non-linear neural networks. In the overparameterized regime, the set of parameters that achieve zero or near-zero training loss forms a high-dimensional manifold. The project will investigate the geometry of this manifold, including its volume, metric structure, distance from random initialization, and relation to test error. It will also study the local geometry near empirical risk minimizers, such as curvature, to understand which geometric properties predict good generalization. Finally, the project will analyze which regions of the interpolator manifold are selected by training algorithms and how algorithmic choices, such as early stopping, can influence generalization. By connecting geometry, optimization, and generalization, the project will build a mathematical framework for understanding non-linear deep learning models.